Postdoctoral Research Fellowship in Plant Biology

9303656 McKhann This is an individual award for the Postdoctoral Research Fellowship in Plant Biology. The applicant received her Ph.D. from University of California at Los Angeles. Her Ph.D. research was in the area of biological nitrogen fixation with emphasis on molecular biology. She plans to carry out her postdoctoral fellowship research in the laboratory of Dr. Adam Kondorosi at the Institut des Sciences Vegetales in Gif sur Yvette, France. The proposed research entitled "Functional characterization of a higher plant MAP kinase" will expand the scientific experience of this Fellow into cell and developmental biology. In addition, her stay at CNRS will add an international perspective to her research experience. ***